Acquisition of Computer Workstation for Geophysical Research

This award will provide one-half the funds necessary to purchase two computer workstations for seismological and geophysical research in the Department of Earth and Planetary Sciences at Washington University, St. Louis. The remaining funds needed are to be committed by Washington University. The workstations will be used primarily for NSF sponsored research projects including the study of deep seismic attenuation and velocity structure of back- arc rifts, near- source structural effects on earthquake body waveforms, the source parameters of earthquakes (particularly tsunami earthquakes), and the study of intraplate deformation and stress using earthquake seismology and stress modeling.